RI-Medium: Collaborative Research: Robotic Parkour--Dynamic Climbing

We propose to explore design, control, and motion planning for robotic parkour---the highly dynamic form of locomotion that includes ascending chutes by leaping back and forth between opposing walls.

Our broad goal is to give robots access to difficult-to-reach places by taking full advantage of their dynamics and the potential reaction forces afforded by the environment. The proposed work will address two challenge problems:

1. To design, build, and control a planar robot to dynamically climb in a rigid vertical chute, and

2. To design, build, and control a planar robot to reliably move from an initial state to any dynamically reachable goal state in a complex vertical environment of footholds at various orientations.

The true goal of this work is not to build speciﬁc-climbing robots, but rather to address scientiﬁc issues fundamental to dynamic legged locomotion in non-trivial terrains by confronting these two challenges.